Acquisition of an Automated DNA Sequencer

9221733 Reimer Automated DNA sequencer will be used by the Biotechnology- Molecular Biology Instrumentation and Training Facility at the University of Hawaii in studies that will include characterization of the DNA that codes for the motility protein dynein; evolutionary studies on mitochondrial DNA; and characterization of significant genetic elements from Drosophila, marine microbial species, and tropical crop plants. Biological researchers from several schools and research institutes of the University will use the instrument for highly repetitive sequencing of specific loci from multiple sources, for extensive sequencing of specific structural genes, and for characterization of PCR amplified "micro-satellite" DNA fragments. Automated DNA sequencing equipment can now perform this monotonous task with comparable or higher accuracy than manual methods, with lower personnel requirements and without the need for radioactive materials. This instrument will provide access to DNA sequencing services to approximately 40 research groups on campus on a minimal fee basis.